Integrated Environmental Science and Technology Education for Middle Grade Teachers

9355753 Bell This teacher enhancement project is a collaborative effort between the American Association for the Advancement of Science (AAS) and George Mason University (GMU). It is a four year program to prepare 40-middle school teachers in 3 and 4 member teams to implement "integrated environmental science and technology education into their science curriculum. Each team participates in a two-year program; teams include a science teacher, a computer science or mathematics teacher and a technology education teacher from the same school; teams come from DC, MD, PA, VA and WV. Two sets of teacher teams will participate. During the program, each teacher team will: (1) increase their knowledge of environmental science, mathematics, computer technologies and technology education, as well as pedagogical content; (2) adapt and develop units of study that link science content with appropriate teaching and assessment strategies; and (34) disseminate to other teachers the process for developing an integrated curriculum and team approach to teaching. At GMU teachers will work in small groups to solve problems related to scientist/engineer partners and school administrators. The comprehensive project evaluation is designed to determine (1) how successful (in terms of student outcomes) are the teachers and units they adapted/developed, (2) how well the team concept transfers, and (3) how successful (in terms of student outcomes) are the teachers trained through the dissemination workshops with units developed by others.